TC: Small: Collaborative Research: Trustworthy Hardware from Certified Behavioral Synthesis

Electronic System Level (ESL) designs, specified behaviorally using
high-level languages such as SystemC, raise the level of hardware
design abstraction. This approach crucially depends on behavioral
synthesis, which compiles ESL designs to Register Transfer Level (RTL)
designs. However, optimizations performed by synthesis tools make
their implementation error-prone, undermining the trustworthiness of
synthesized hardware.

This research develops a mechanized infrastructure for certifying
hardware designs generated by behavioral synthesis. It entails
developing a certified "reference flow" of synthesis transformations.
The reference flow is disentangled from the workings of a production
synthesis tool through new formal structure called "clocked control
data flow graph" (CCDFG) formalizing internal design representation.
Given an ESL design and its synthesized RTL, certification entails the
following automatic steps: (1) extracting initial CCDFG; (2) applying
certified "primitive transformations" from the reference flow,
following the application sequence by the synthesis tool, and (3)
checking equivalence between the transformed CCDFG and RTL. Theorem
proving is used to certify primitive transformations off-line;
equivalence checking accounts for low-level transformations and
manual tweaks. The correspondence between the transformed CCDFG and
the synthesized hardware makes equivalence checking efficient.

The project facilitates development of scalable and trustworthy
hardware: adoption of ESL approach expedites design cycle while formal
analysis guarantees trust in the synthesized hardware. The reference
flow makes explicit key design invariants implicitly assumed by
synthesis tools, facilitating development of more aggressive synthesis
tools. Finally, the tight integration of two complementary techniques
--- model checking and theorem proving --- in the certification is
applicable to other domains.